System Identification of Inelastic Structures

ABSTRACT

SYSTEM IDENTIFICATION OF INELASTIC STRUCTURES

Fai Ma
Professor of Applied Mechanics
Department of Mechanical Engineering
University of California
Berkeley, California 94720

The lack of a fundamental and comprehensive theory of hysteresis is a major barrier to successful design of structures against earthquakes and strong winds. Many structural systems with significant hysteresis, for example wood buildings, steel bridges, and reinforced concrete towers are critical elements of our built environment. They provide some of the most basic and important services required by our communities such as housing, commerce, transport, and communications. Despite their obvious importance, and their huge replacement costs, the design and analysis of the majority of these structures is based on overly simplistic or iii some cases flawed assumptions of internal energy dissipation. A practical model of hysteresis that would match experimental observations on real structures is much desired.

The generalized version of a differential model of hysteresis can curve-fit practically any hysteresis trace with a suitable choice of the model parameters. In cyclic performance tests of inelastic systems, load-displacement traces are routinely documented. Using system identification techniques, it appears highly feasible to estimate the model parameters of differential hysteresis of inelastic structures from the extensive base of experimental data. A fundamental objective of this proposed project is to do just that.

In a period of three years, three specific tasks of great significance will be performed.
First, specialized identification algorithms will be constructed for inelastic systems to estimate their parameters of differential hysteresis from experimental data. These algorithms will treat strength degradation, stiffness degradation, as well as pinching characteristics of hysteresis.
Second, once the model of hysteresis has been determined by system identification using data from an experiment, the same model will be analyzed to predict the response of a similarly configured structure subjected to other forms of cyclic excitation. This task will be carried out with an emphasis on the evaluation of seismic performance of inelastic structures. Third, test data collected under different conditions will be interpreted by system identification to assist in the design of a set of recommended protocols for cyclic tests of wood systems.